CAREER: Advanced Nonlinear Control of ac/dc Micro Grids

The objective of this research is to build a quality research program to develop advanced nonlinear
controllers using artificial neural networks that have assured performance for the emerging ac/dc micro
grids. The proposed research is associated with educational activities and a well-defined plan for
technology transfer to industry. The micro grids comprise of conventional fossil-based generators along
with significant penetration of highly intermittent renewable energy sources as well as storage devices.
The approach is to develop nonlinear models of the proposed micro grids, followed by nonlinear control
schemes leading to assured grid stability. Next, pertinent simulation and hardware implementation of the
proposed controllers will be performed.
Intellectual merit. The proposed work shall focus on fundamental challenges of ac/dc micro grids
including proper modeling, centralized and decentralized nonlinear control, and assured stability using
distributed generation, FACTS devices and storage. Moreover, the PI will develop new undergraduateand
graduate-level courses on ac/dc power systems. Publications in related journals and conferences will
continue.
Broader impact. Near and long term impacts of the proposal’s outcomes include allowing widespread
utilization of renewable sources through efficient control designs, technology transfer to industry,
dissemination of the course materials to other institutions, as well as control design for other complex
applications such as Dep. of Trans., wireless networks, etc., through employing the experience obtained
in this work on complex systems control. In addition, a set of outreach activities including engagement of
women and under-represented minorities through Louisiana Student Diversity Programs' office and K-12
outreach are planned